RUI: Probes for Relativistic Heavy Ion Collisions

0098760
Haglin
Theoretical support offering interpretations of the physics in heavy-ion experiments carried out at the relativistic heavy ion collider at Brookhaven National Laboratory and planned at the LHC at CERN is crucial to the experimental study of the possible formation of a quark-gluon plasma (QGP). Conventional mechanisms need to be studied and understood fully before claiming new physics such as QGP. This proposal concerns the physics of particle production and collective nuclear effects in these nuclear collisions. Electromagnetic probes of strongly interacting particles produced within the nuclear medium are the tools of choice of the Principal Investigator. It is hoped that this work will enable one to separate the proposed QGP signals from the all the other complicated hadronic phenomena that occur in the hot and dense environment created in these collisions.